Deep Submergence Operations - 2002

Abstract
OCE?0217076

Woods Hole Oceanographic Institution
Barrie Walden

This proposal requests operating funds for the National Deep Submergence Facility (NDSF) during 2002. Resources provided for under this proposal include the Human Occupied Deep Submergence Vehicle Alvin, the Remotely Operated Vehicles Jason, Medea, Argo and DSL?120. These assets will be used to support NSF?sponsored ,oceanographic science programs utilizing the engineering and operational personnel of Woods Hole Oceanographic Institution's Deep Submergence Group.

The proposed operating schedule contains a total of 321 operating days for DSV ALVIN and the ROVs. The DSV days will be supported on the R/V ATLANTIS with 13 cruises for the National Science Foundation, The facility will also support 3 cruises for National Ocean and Atmospheric Administration and one joint cruise for NOAA, NSF and Navy. The ROV days will be supported on the R/Vs ATLANTIS and THOMPSON.

These cruises will mainly take place in the Pacific Ocean and will range from the Galapagos Islands off Ecuador to the Aleutian Islands off Alaska and include waters off Costa Rica, Mexico and Canada.